Crustal and Mantle Structure Beneath the Central California Margin: A Teleseismic Study

This research is to study the crust and upper mantle beneath central California using a new and independent teleseismic data set collected in the region by Pacific Gas and Electric Co. First, the receiver function technique will be used to study the orientation and possible imbrication of the oceanic crust beneath the continental margin in addition to looking for variations in crustal thickness along the margin. Second, the data set will be merged with that of the USGS to do a 3-D seismic travel time residual study of the crust and mantle beneath the margin. Understanding the tectonic history is essential for better understanding and characterization of the potential seismic hazards present today. This research is a component of the National Earthquake Hazard Reduction Program.